The Revision of the CHEM Study Films

During the past twenty years, the twenty-seven CHEM study films have become classics among the chemistry films of the world. They were produced as an integral part of the Chemical Education Material Study and continue to be widely used. This is evidenced by the sale of more than 27,000 prints and more than 82,000 rentals since they were released in the early sixties. They maintain scientific integrity and are correlated to the texts currently in use. No other series of chemistry films has its subject matter authenticated by such outstanding chemists as Glenn T. Seaborg: Linus Pauling, Henry Eyring, Bryce Crawford, George Pimentel and J. Arthur Campbell. The films were produced for the high school level. The basics of chemistry, since they were produced, are still valid. They bring to the classroom demonstrations and abstract concepts in animated pictorial form which would be difficult for the teacher to present in any other way. Unfortunately, teachers look at copyright dates and observe anachronisms of instrumentation, hairstyling and method of presentation and are deterred from using the films. Relatively minor revisions can bring them up-to-date at a modest cost compared with making new films. Revisions will include the use of modern instrumentation, discussions of current industrial uses for the concept, and the employment of underrepresented groups in film presentations. The useful life of these films can be significantly extended for some time. Since they can now be made available in low cost video cassettes, teachers will be able to have CHEM Study video materials available in every school. Without revision, these valuable teaching aids will be lost. Funding is provided for making these revisions. This project address the goal of the Instructional Materials Program to support the development of improved instructional materials for our precollege classrooms. Both training and track record make the Project Director eminently qualified to conduct the activities.